Collaborative Research: Connected Biology: three-dimensional learning from molecules to populations

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This project will contribute to this mission by designing, developing, and examining the learning outcomes of a new curriculum unit for biology that embodies the conceptual framework of the Next Generation Science Standards (NGSS). The curriculum materials to be developed by this project will focus on two areas of study that are central to the life sciences: genetics and the processes of evolution by natural selection. These traditionally separate topics will be interlinked and will be designed to engage students in the disciplinary core ideas, crosscutting concepts, and the science and engineering practices defined by the NGSS. Once developed, the curriculum materials will be available online for use in high school biology courses nationwide.

This project will be guided by two main research questions: 1) How does learning progress when students experience a set of coherent biology learning materials that employ the principles of three-dimensional learning?; and 2) How do students' abilities to transfer understanding about the relationships between molecules, cells, organisms, and evolution change over time and from one biological phenomenon to another? The project will follow an iterative development plan involving cycles of designing, developing, testing and refining elements of the new curricular model. The project team will work with master teachers to design learning sequences that use six case studies to provide examples of how genetic and evolutionary processes are interlinked. An online data exploration environment will extend learning by enabling students to simulate phenomena being studied and explore data from multiple experimental trials as they seek patterns and construct cause-and-effect explanations of phenomena. Student learning will be measured using a variety of assessment tools, including multiple-choice assessment of student understanding, surveys, classroom observations and interviews, and embedded assessments and log files from the online learning environment.